Workshop on Future Research Opportunities in Electro- magnetics with a Focus on Integrated Electronics

Electromagnetics has been a cornerstone for analysis and understanding of high-speed, high-frequency switching transmission and communications for nearly a century. The recent advances in microelectronics characterized by guided wave connections including fiber optics combined with decreasing feature size have introduced new electromagnetic behavior that defines new research opportunities. At the same time new computation aids provide low cost methods of addressing problems involved in new design support. Support is provided for planning and conducting a workshop to facilitate a comprehensive discussion by key researchers, both academic and industrial, in this field.